A Dictionary of Iban Ritual Languages

The project is the editing and publication of a dictionary of the ritual languages of the Iban of Borneo. The dictionary will contain approximately 20,000 entries. No dictionary for any of the ritual languages of Borneo currently exists. The Iban are the politically dominant and most numerous indigenous society on Borneo, the third largest island in the world. Iban are found in all parts of the island, and in many other countries in Southeast Asia. Iban speakers number approximately 1,100,000, and Iban is the second language to another 500,000 people. The dictionary will provide a permanent record of the survivals, archaisms, and other esoteric terms that receive little attention in most dictionaries. The dictionary will make available to linguists, anthropologists, and other social scientists the extensive lexicons and imagery of Iban bards and shaman, as well as the oral traditions of the Iban. The lexicon of ritual terms will be valuable to historical linguists for the study of relationships between vernacular and ritual languages of Austronesian-speaking communities. It will provide data essential to the analysis of the evolution of such specialized vocabularies. In light of rapid social and cultural changes, it seems likely that unless the dictionary is produced before the end of this decade, its production will be impossible.